Application of Fuzzy Logic in CAD of Digital Systems

This research explores the application of fuzzy logic methodology to logic and architectural synthesis. Constructive and iterative design strategies as well as adaptive capabilities are being introduced in design algorithms. Theoretical aspects of adaptation of design algorithms are being investigated. Methodologies and tools being developed include: 1. Multi-objective iterative algorithms for physical design; 2. Adaptive placers; 3. A system for logic synthesis and list scheduling; 4. Technology mappers for FPGAs. These are being implemented in software and tested on variety of benchmarks.